Special loci in algebraic geometry and number theory

This award supports research in algebraic geometry and number theory, fields of mathematics that focus on polynomial equations and the geometric spaces formed by their solutions. These spaces, called algebraic varieties, are fundamental objects in modern mathematics. Algebraic varieties have applications to fields such as cryptography, coding theory, image processing, and theoretical physics. This project investigates the way that algebraic varieties change in families and investigates special subsets of them called "special loci" where unexpected algebraic relations or symmetries appear. Hodge theory forms the major framework for the research that will be undertaken, from which one gains a powerful point of view that allows one to study algebraic varieties through simpler associated numbers or objects. The project incorporates graduate and undergraduate student training in its research endeavors, and the principal investigator will be active in several outreach initiatives.

More specifically, the project’s research will focus on several central problems concerning the distribution of special loci in families of algebraic varieties. One major goal is to study the non-abelian Hodge locus, motivated by conjectures of Deligne and Simpson. The second research goal is to make progress on Kudla’s conjecture concerning the modularity of special cycles on compactifications of orthogonal and unitary Shimura varieties. The third goal is to advance the understanding of the Zilber-Pink conjecture on atypical intersections. Techniques from Arakelov theory, metric topology, automorphic forms, algebraic geometry, and number theory will be used in pursuit of these goals. The project is expected to lead to a new understanding of the structure and distribution of special loci in algebraic geometry and number theory.